CAREER: Complexity, Reality, and Rationality in Large Nonlinear Equation Solving

In this Career project, the investigator studies problems
that involve an interplay between algebraic geometry, number
theory, and complexity theory. Specific projects include:
(1) A new generation of fast randomized algorithms for real root
counting, allowing analytic as well as algebraic equations,
(2) Further explorations into algorithmic fewnomial theory over
the real and p-adic numbers,
(3) A deeper analysis of numerical conditioning of random sparse
polynomial systems,
(4) Sharpened quantitative results for rational solutions of
straight-line programs,
(5) Further exploration of number-theoretic approaches to the P
vs. NP question.

Solving equations is ubiquitous in applications, cutting
across many areas of engineering and science: A brief list
includes drug design, faster and more reliable methods for radar
imaging and geometric modelling, and more reliable and efficient
approaches to robotics and autonomous vehicles. The investigator
develops methods for problems related to the solution of
polynomial equations, with an eye toward these applications. He
also actively recruits students from schools in poorer areas of
Texas (with large African-American and Hispanic populations) to
help disadvantaged students and channel more bright young people
into the computational sciences. He also continues work on
related software, so that the broader public can benefit from the
discoveries of this project.